Block Travel Grant for the Seventh National Power Systems Conference (NPSC) to be held in Calcutta, India, December 19-22, l992

This is a block travel grant for U.S. researchers to attend the Seventh National Power Systems Conference(NPSC) at Calcutta, India. The NPSC is a comprehensive conference devoted to power systems and is widely attended by scientists, engineers, consultants and manufacturing representatives from all over India. This grant will provide travel funds for 20 U.S. participants.